RUI: Dynamics and Control of Coherent Processes in Highly Excited States

This RUI project focuses on the study of fundamental problems in strong field coherent control, particularly as applied to ladder systems in Rydberg atoms. Four specific areas are targeted: 1) extensions of stimulated Raman adiabatic passage techniques to three-level systems; 2) the use of chirped pulses for climbing anharmonic ladders; 3) the exploration of the use of feedback-control systems applied to the ladder climbing problem, in particular the robustness of various learning algorithms; and 4) the creation of arbitrary Stark wavepacket states using radiofrequency pulses.